Induction Antennas for BAS AGOs

Abstract 9316750 Engebretson This project will provide search coil magnetometers to be installed in Antarctica in four Automatic Geophysical Observatories (AGOs) which are being built by the British Antarctic Survey (BAS). They will be used to study ultra low frequency (ULF) waves of magnetospheric and ionospheric origin. In combination with manned Antarctic stations and the AGOs being deployed by the US Antarctic Program, this new set of magnetometers will complete a network from deep in the polar cap to subauroral latitudes and will also provide nearly complete coverage under the fields of view of the auroral radar at the BAS station at Halley Bay and the soon to be installed radars at Sanae and Syowa Stations. The Halley and Sanae radars are collaborative efforts between Johns Hopkins University, BAS and the South African National Antarctic Expedition. The final array of AGOs will comprise a network covering a much larger range of magnetic latitude and local time than can ever be built on a solid surface in the Northern Hemisphere. Augsburg College is an entirely undergraduate institution and this grant is a Research at an Undergraduate Institution (RUI) award. ***